Connecting to Internet/NSFNET

9628469 Dunn Tusculum College requests support from NSF for connection to an Service Provider who will give the campus access to the Internet, a collection of interoperable networks connecting most research and education organizations in the United States. The campus needs the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Tusculum College as well as the community in general.